Women in Science: A CD-Rom Multimedia Database

Although some of the barriers preventing women from entering science and engineering careers have diminished or disappeared over the last several decades, the number of women scientists and engineers in the United States is still disproportionately small. Results of the Phase I Small Business Innovation Research (SBIR) study establish the technical basis for a new educational tool, an interactive Compact Disc - Read-Only Memory (CD-ROM) program, Outlooks, that has as its purpose the introduction of students to women scientists and scientific careers. Through audio, photos, illustrations and text, the prototype imparted to students significant and inspiring information: They were getting to know top women scientists, to learn about their exciting work on a personal basis, and to find out what it takes to become a scientist. The research objectives of the Phase II research focus on (1) planning and designing the format, content, and technical approach of prototype software; (2) producing Phase II prototype packages (the CD-ROM and the teacher's guide); and (3) conducting development, implementation and impact studies. The work will provide a multimedia CD-ROM program highlighting the accomplishments of women in science and an audiovisual resource for science and career education in an engaging, interactive format.